Equipment for Investigation of Effects of Microstructure and Mechanical Properties on Tribological Behavior of Foamed Polymeric Materials

0070941
Liang
An equipment award supports the acquisition of a table mounted universal mechanical testing equipment that will be shared by the disciplines of materials, engineering and geology in support of various studies of the mechanical properties of polymers, metals, and rock materials.
***